Research on a Cryogenic Suspension for LIGO

Professors Johnson and Adams shall investigate cooling mirror suspension to cryogenic temperatures. The primary activity will be measuring the dissipation parameter (called Q-1) for possible mirror suspension wires as a function of temperature T. The parameters Q and T determine the size and character of thermal noise. They shall investigate one or two special metallic alloys that they have identified as good candidates.
If gravitational wave observatories such as LIGO are successful, we shall have a new way to observe some of the most awesome events in the life of the universe, such as the inspiral of two neutron stars to their cataclysmic coalescence and the subsequent birth of a black hole. The LIGO project will attempt detection of gravitational waves from such events with two observatories which have 4 kilometer long laser interferometers. The big scientific payoff may not come with the initial instrument, but only after substantial improvements in sensitivity. This award is directed towards developing the technology to make a major improvement in one of the most important limits to LIGO sensitivity: the problem of thermal noise in the suspension of the interferometer mirrors.